Extending Mathematical Power (EMPower)

9911410
STEINBACK

The Education Research Collaborative at TERC in Cambridge, MA, is adapting and extending the materials from three NSF-funded instructional materials development projects in order to meet the needs of out-of-school youth, adult learners, and other non-traditional students enrolled in adult basic education, pre-GED, GED/high school equivalency, and transitional courses to college. The materials being adapted are Investigations, Connected Mathematics, and Interactive Mathematics Program. Eight units are being developed around the topic areas of: Number Sense; Patterns, Functions, and Relations; Geometry and Measurement; and Probability and Statistics. Support materials for instructors are being developed along with the instructional materials, and professional development activities are being provided as well.